Acquisition of Computer Workstations Necessary for Hydrogeologic and Geophysical Research

9871388 McPherson This grant, made through the Major Research Instrumentation (MRI) program provides over 50% of funds necessary to acquire a computer system sufficient and necessary for performing specialized hydrogeologic and geophysical research. Specifically, the advanced computer system is required for analysis of extremely large, time-dependent data sets, performing model simulations using such data sets, and 3-D visualization and animation of results. New Mexico Tech Hydrology and Geophysics faculty and students will use the new computers in both teaching and research. Research projects that will use the new computer system lie within ten research focus areas: (1) aquifer heterogeneity and spatial variability, (2) vadose zone hydrology, groundwater recharge, semiarid region soils and geomorphology and their relationship to ecology, (3) basin- scale hydrogeology, (4) environmental contamination and remediation, (5) land surface-atmosphere interactions, paleoclimatology and paleohydrology, (6) investigation of crustal structure and earthquake source processes using microearthquakes and teleseismicity, (7) volcanic seismology, (8) numerical modeling of seismic wave generation and propagation, (9) experimental and theoretical study of rock and sediment physical properties and acoustics, and (10) high resolution seismic reflection/refraction studies. The system to be acquired includes a high capacity, multi-processor server capable of handling extremely large data sets and performing numerical model simulations requiring such data sets. The system also includes 8 advanced workstations capable of state-of-the-art 3-D visualization and animation. ***